The Development of Procedures for the Fabrication of Alumina Porous Membranes by Anodic Oxidation

This Career Advancement Award for Women Scientists and Engineers helps to augment the research potential of the principal investigator through the development of skills in the preparation of inorganic membranes. Alumina membranes with various nominal pore sizes and size distributions, with well-defined non-idealities like pore branching, and with different surface charge character will be made by anodic oxidation and used to expand fundamental studies on hindered diffusion.